Oliqomycin resistance in soybean tissue culture cells

This proposal is designed to develop a mitochondrial antibiotic resistance marker in soybeans. Soybean cell cultures will be initiated and mutaginized. After mutagenesis they will be selected with the antibiotic, oligomycin. Oligomycin resistance is due to a change in mitochondrial ATPase. Oligomycin resistant cultures will be checked to see if the mutation to resistance is stable by relaxing selection. Stable mutant cultures will be grown into plants. It is important to have a selectable marker in mitochondria so that mitochondrial transformation methods and studies can be developed.